Magmatic and Solid-State Strains in Plutons of the Central Sierra Nevada Batholith: Implications for Pluton Ascent, Emplacement, and Batholith Dynamics

Plutons and their wallrocks are an interrelated system in which the regional strain field and physical condition of the wallrock influence pluton ascent and emplacement, while the heat, fluids and local strain field of the rising magma in turn influence wallrock deformation. This project will attempt to better under- stand this interrelationship by study of magmatic strains, structures and kinematics in three spatially related plutons in the Sierra Nevada and in the adjacent wallrocks. The data obtained will yield insight into the nature of pluton ascent and emplacement in large volume magmatic arcs, and is expected to be applicable to continental magmatic arcs in general.